Control of the Errors of Idealization in Design Computations

Development of a process for controlling errors of idealization will be investigated under this project: The exact solution of a mathematical model is in fact an approximate solution of a more general mathematical model. For example, the problem of linear elasticity can be viewed as the first step in Newton's method in solving nonlinear problems. The key to assessment and control of errors associated with mathematical models is to view those models as members in a hierarchic sequence of models. The sequence of (exact) solutions corresponding to those models converges to the most general mathematical representation of the system modelled. The model is properly chosen if the engineering conclusions derived from it are not sensitive with respect to the various assumptions incorporated in the idealization, such as assumptions of linear elasticity, kinematic boundary conditions, etc. Focus will be on the treatment of an important class of engineering problems, the modelling of structural connections. Incorporation of experimental information into mathematical models of structural connections will be investigated.